Research Experiences for Undergraduates in Chemistry at the University of California, Irvine

Professor Marjorie Caserio and other members of the Chemistry Department of the University of California at Irvine are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from biochemistry and organic synthesis to thin films, molecular dynamics, and atmospheric chemistry. Provisions will be made for the students to learn a variety of experimental techniques, learn the results of each other's work, and present a seminar on the results of their own research.